Center for the Study of Light Matter Interaction in Photonic Materials

HRD-9805530
PI Rael, Selimo
Inst: New Mexico Highlands University

New Mexico Highlands University will build on the strong research group base in the area of Dynamical Investigations of Molecular Hyperpolarizabilities using Optically Mediated-Charge Transfer to form a more comprehensive program suitable for a fule CREST Center award. This three-year effort will focus on management, research infrastructure, outreach to undergraduate underrepresented minorities, and interaction with other regional institutions.